Metal fingerprinting and chemothermal isolation methods to quantify natural and engineered carbon nanoparticles

CBET - 1336794
Overview:
The PIs seek to develop methodology to quantify, fingerprint, and distinguish natural and engineered
carbonaceous nanoparticles using thermal separation techniques and metal content signatures.
Building on well-established thermal methods to quantify black carbon (BC) soot, the PIs
propose a technique that distinguishes non-nanoparticulate natural organic matter, single-walled
carbon nanotubes (SWCNTs), and BC (the most ubiquitous, natural carbonaceous nanoparticle)
based on their distinct thermal stabilities. Preliminary results suggest that natural organic
matter, SWCNTs, and BC have unique oxidation ranges and could be distinguished and quantified
following sequential oxidations coupled with elemental analysis. Here, we aim to demonstrate
that these thermal stabilities are preserved in complex mixtures of air, water, sediments,
and soil, and as a result, can be used to quantitatively delineate the nanoparticles (e.g.,
natural vs. engineering) in environmental matrices. Furthermore, bulk metal contents determined
via complete acid digestion and mass spectrometry should provide a route toward source apportionment.
Advantages of this approach include the low cost, accessibility, high-throughput capabilities,
and minimal sample processing (e.g., extraction) required for this method, which reduces the
potential for analyte loss and transformation during analysis.

Intellectual Merit :
The National Research Council 2012 EHS Nanotechnology Research Strategy report listed analytical
techniques as the first research priority. Current approaches for measuring carbonaceous
nanoparticles (CNPs) in the work place (and atmosphere) primarily rely on light-scattering
particle sizers, which provide a bulk measure of nano-sized particles. However, as synthetic
approaches to form engineered carbonaceous nanoparticles (i.e, carbon nanotubes and graphene)
are known to co-produce natural nanoparticles (i.e., soot), current results are reporting
natural plus engineered nanoparticle exposure. Thus, it is not possible to quantitatively
determine occupational exposure to engineered nanoparticles. In addition, there are no methods
to assess release of engineered nanoparticles to the atmosphere, which is a likely vector
for CNP transport to the environment. This has severe consequences for ongoing nanoparticle
research: (1) fate models lack validated source data, (2) occupational exposure can be neither
assessed nor enforced, and (3) environmental release can not be mitigated where necessary.
Upon project completion, quantitatively differentiation of natural and engineered carbonaceous
nanoparticles (NPs) will be possible for the first time, allowing accurate assessment of exposure
to engineered NPs, which have unique properties, morphologies, and toxicities compared to
natural NPs. These goals are within the team’s reach and rely on affordable, accessible technologies.

Broader Impacts :
The PIs and their research groups are actively involved in the outreach efforts hosted by
the Center for the Environmental Implications of Nano-technology (CEINT) at Duke University,
as well as other science enrichment activities there, including Females Excelling More in
Math Engineering and Science (FEMMES) (100% females from underrepresented groups) volunteer
science workshops. As part of the proposed work, the PIs will establish a nano-analytical
K-12 education module (Is CSI for real? Rapid Nano-forensics?), and this will be taught as
part of NanoDays, FEMMES, and later distributed to the CEINT network of K-12 educators. Additionally,
the program will be modified for a more advanced audience (e.g., public library and senior
center), delivered live, and videotaped for web distribution.